Sensory Based Dextrous Manipulation with a Multi-Fingered Hand

Most industrial robots employ primitive parallel-jaw grippers or special-purpose manipulators designed for specific tasks. NSF has provided Columbia University with a Utah/MIT dexterous hand capable of grasping and fine manipulation in the manner of the human hand. This new grant will permit development of tactile sensing strategies for identifying known object types, and sensor-based control strategies for manipulating tools and parts.